Computer Science, Engineering and Mathematics Scholarship Program

This project provides 40 students with a scholarship sufficient to cover tuition, fees, and books, and a comprehensive set of academic support services to ensure that each recipient attains a 4-year degree and is prepared for graduate studies and/or placement in an appropriate workplace. These academic support services include: admission and matriculation assistance, workshops, access to a study center, advisement and counseling, tutoring, support in joining and participating in professional organizations, eligibility to compete for additional grant funds reserved for engineering, computer science, and math students, support in securing appropriate internships and summer employment, professional activities, job placement assistance, and involvement in a social support network. A comprehensive summative evaluation is planned.